Math and Parent Partnerships in the Southwest (MAPPS)

9901275
GAY

In several primarily Hispanic, low socio-economic school districts of the southwest in partnership with local institutions of higher learning, this 48-month project will develop programs and materials to attract parents of children of all grade levels and make them active supporters of a system that promotes good mathematical learning for their children. These programs and materials will help them become aware of what is happening in their children's classroom; offer them occasions to take on leadership roles in working with teachers, administrators, and other parents; and provide them opportunities for in-depth experiences with school mathematics. The materials will be initially developed and piloted in the Sunnyside School District. After revision from the pilot project, the project will be implemented in several other school districts.